ITR: Covirt: Security Defenses for Insecure Operating Systems

Ensuring the security of today's computer systems is an urgent and difficult
problem. The complexity and rapid pace of change in current software systems
prevents developers from verifying or auditing the code thoroughly enough to
eliminate vulnerabilities. This project seeks to provide security defenses
that work in the presence of compromised operating systems and applications.
Even if an attacker compromises the operating system, these defenses will
continue to ensure their intended security policies.

This new level of security is made possible by adding a virtual-machine layer
underneath the vulnerable operating system and applications. This additional
software layer enables new security services that do not depend on the
integrity of the target software. This project explores four new security
services that can be added via virtual machines: 1) the ability to replay
and analyze the complete, instruction-by-instruction execution of a computer
system, including actions after the point of compromise; (2) the ability to
recover the system to a prior state after an intrusion; (3) the ability to
prevent intrusions by safely testing hypothetical "what if" scenarios; and (4)
the ability to detect intrusions by monitoring all actions of the computer
system.